PRF/M: Phylogenetic Analysis of Within-species DNA Sequence Data

Mathematical and statistical methods will be developed to analyze and interpret DNA sequences from different individuals of the same species. The goal of the research is to use such data to achieve a greater understanding of processes governing genetic evolution, particularly mutation, recombination, gene conversion and gene flow. The methods developed will take advantage of the detailed information provided by within-species DNA sequence data. Particular attention will be paid to the phylogenetic relationships of genes as indicated by their sequences. The overall approach of the research will be to combine simple analytic models of simple problems with computer simulation models of more complex and realistic problems. The methods developed will be applied to available data. The plan is to spend one semester in Richard Lewontin's laboratory and Harvard University learning more about what kinds of data are available and working with Lewontin and his collaborators on the analysis of their data. //